Low-Energy Vibrational Excitation of Molecules by Electron Impact

Research will be directed towards developing more accurate methods for the calculation of molecular vibrational excitation cross sections for electron scattering at low energies. A new method of calculation, the first-order, non-degenerate adiabatic method, which was previously used to provide improved cross sections for vibrational excitation of hydrogen will be extended to permit calculations on more complex molecules. Calculations will be compared with experimental results.